Small Grants for Exploratory Research: Outflow Boundary Conditions

Under a Small Grant for Exploratory Research, an investigation is to be carried out which explores the range of validity and underlying theoretical basis of a newly developed boundary condition for application to computational fluid dynamics. The boundary condition is for the downstream boundary of finite computing domains, which are computationally necessary for flow problems in an infinite domain. Existing specifications for this downstream boundary are unsatisfactory and require very large computing domains to avoid errors there from contaminating the simulation. A significant improvement in accuracy and computational cost would result from an improved specification of data on the downstream boundary.